Science Learning in Context: Student Field Investigations

9553639 Tinker This project will vastly expand the range of contexts in which students can learn science, mathematics, and technology by providing flexible tools that help them extract data and meaning in the complex, real world. We will bring a full range of computer and networking tools outside the lab for explorations of rich, natural settings (the field, classroom, school, neighborhood, town and city) where we expect students will develop understandings and investigative strategies that will last a lifetime. The project will use portable MBL and client-server based wireless networking- advanced technologies already beginning to make their appearance and certain to be inexpensive, powerful, and widely available in five to ten years. The technology will make it possible for students to make digital journal observations, gather a range of kinds of data, consolidate data from others, reflect on the data, link findings with background information and data, develop models based on these data, and communicate with others. Used with intelligent prompting, scaffolding, various data representations, and data exchange forms at their fingertips, we expect to see far more student reflection and analysis in the field. This will result in deeper learning, better use of time, and the possibility of additional cycles of observations and analysis. In order to test the educational potential of this technology, we will develop a series of innovative units that employ the technology to support new ways to teach about scientific measurement, modeling, mapping, and investigations. At the same time we will test new instructional strategies using this technology to develop holistic models of the natural, built, and social environment. The instructional strategy will be based on a learning cycle that starts and ends with field investigations, but, in between, also uses the same technology in a lab. Using this approach, we expect student inquiry to be more efficient, student i nvestigations will be more expert, the resulting knowledge will be less inert , and many new topics will be amenable to student investigation. In addition, students will become more acquainted with their vocational choices. These results will have important implications on the practicality of widespread use of extended student investigations, equity, home study, and the school-to-work transition. The project will require four years, with the primary technology and curriculum, development in the first two years, final design in the third, and a full year of testing in the fourth. ***